Gapped Ground State Phases of Quantum Matter

At low temperatures, the thermal motion of atoms responsible for the classical phases of matter observed in everyday life is suppressed and quantum mechanical effects dominant, leading to novel quantum phases of matter. These include so-called topological phases, whose relatively recent discovery and exotic behaviors offer exciting possibilities for developing quantum computing devices. Realizing these technologies requires a rigorous understanding of quantum phases and their properties, making the development of tools for classifying quantum phases vital. As physical systems are expected to be in their ground state, or lowest energy state, at low temperatures, significant attention is given to ground state phases. A fundamental step in this classification is determining whether a gap exists in the energy spectrum above the ground state energy, as gapped and gapless systems exhibit distinct characteristics, such as differing rates of correlation decay. Furthermore, a spectral gap generally implies that the ground state is robust against gentle perturbations to the system, a critical requirement for practical technological design where errors in the theoretical models are inevitable. This project will advance the desired theoretical framework for classifying gapped ground state phases of matter by addressing these core questions for topological phases that are commonly encountered and of particular interest to condensed matter theory and quantum information science. Integral to this project will be educating early career researchers through the creation of new courses, research collaborations, and writing a text detailing recent advancements in the field.

To achieve these goals, the investigator will first develop novel methods for proving ground state energy gaps by rigorously analyzing fundamental models of topological phases. As numerical results can only provide limited evidence of a gap, developing new rigorous techniques for establishing energy gaps is imperative, especially for classes of models where results are scarce. This objective will be met by adapting and combining one-dimensional spectral gap methods to broader contexts. Second, the project will expand and refine fundamental tools that utilize quasi-local estimates, known as Lieb-Robinson bounds. New bounds will be developed and refined to establish gap stability methods for interacting lattice fermion models and long-range perturbations, which will then be applied to specific topological insulator models. Finally, Lieb-Robinson bounds will be used to derive an exponential error bound on the adiabatic theorem for many-body quantum systems, a key result for determining the time required for state preparation for quantum computation. The culmination of these projects will yield rigorously proven examples of stable gapped models as well as key results, tools, and methods for analyzing gapped ground state phases.